Development of Image Processing Software for Quantitative Electron Microscopy

Remarkable progress has been made in the application of the scanning transmission electron microscope (STEM) to the quantitative analysis of the mass distribution within individual biological molecules. The STEM has been used to measure the molecular weights of a number of proteins, fragments of proteins, and nucleoprotein complexes. This project will bring STEM-like capabilities to conventional microscopes, especially those capable of electron imaging spectroscopy (EIS), such as the Zeiss EM902. Image acquisition, display, and analysis programs will be developed using an existing Silicon Graphics IRIS and commercially available inexpensive C subroutines that are portable to Masscomp, Silicon GRaphics, and IBM PC AT computers. The software will allow the low-loss electrons to be used to determine absolute mass, mass/length, and mass distributions of isolated biological molecules in the dehydrated or frozen- hydrated states. In addition, multiple high-loss energy filtered images will be used to map the distribution of major elements in the samples. The programs will be used to further characterize the structure of chromosome fibers. Other users will also have access to our developments. The developmental work and the biological problem on which it will be carried out are of far- reaching importance. It is likely that a significant fraction of NSF-funded biological research will benefit from the availability of these quantitative techniques.